Kinetics of Phase Separation in Partially Miscible Polymer Blends

Kinetics of Phase Separation in Partially Miscible Polymer Blends: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project involves a study of the initial correlation lengths and subsequent development and growth of two phase morphology within the spinodals of partially miscible polymer blends using small angle neutron scattering. The process will be investigated as a function of the molecular weight of the polymers and the interactions between them. The result will be used to evaluate current theories of phase separation. The project is under the Direction of Professor Robert A. Weiss, Chemical Engineering Department and Polymer Science Program, University of Connecticut, Storrs, CT 06268, U.S.A., and Professor R. W. H. Sargent, Department of Chemical Engineering and Chemical Technology, London SW7 2 BY, England. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.